Energy and Environmental Awareness and Career Opportunity Workshop

The GMI Engineering and Management Institute will initiate a three- week, commuter Young Scholars project in Physics for 30 students entering grade 9. The selected students will participate in classroom discussions about various sources of energy such as coal, gasoline, nuclear and solar. Through hands-on experiments they will learn about the basic properties of light and electricity; these concepts will be used in understanding solar power. They will perform several experiments to understand solar motors and solar cell efficiency. Hands-on experiments will also be performed in environmental chemistry where students will learn about carbon dioxide gas emission, the greenhouse effect, ozone layer depletion and toxic waste. Principles and operations of computers (both PC and mainframe) along with BASIC programming skills will be developed. Students will undertake research projects in physics and chemistry and write research papers about their findings.